Isotopic Composition of Aquatic-Plant Tissues and Paleoclimate Proxies

Abstract ATM-9729090 Jackson, Stephen T. University of Wyoming Title: Isotopic Composition of Aquatic-Plant Tissues as Paleoclimate Proxies The SGER award supports a pilot study on isotopic composition of aquatic plant tissues as a paleoclimate proxy. The project is aimed at developing, testing, and applying a new and untried approach for inferring precipitation seasonality, moisture source, and evaporation loss from small, freshwater lakes. The work will test a mass balance approach to determine whether it can successfully disentangle evaporation and precipitation signals from lakewater data. Stable isotopes will be studied from modern lakewater, aquatic-plant seeds, lake sediments, and precipitation from sites distributed over a wide area in the central and southern Rocky Mountains and the Colorado Plateau. If successful, this method should open the way for a variety of applications in paleoclimate inference and model testing.